HCC: Understanding and Supporting Rural Community Adaptation to Workplace Automation

Rural communities across the United States have navigated decades of technological change in local industries such as manufacturing and agriculture. These changes are likely to accelerate as artificial intelligence and robotics technologies improve, raising an urgent need to understand not just how jobs are transformed due to technological change, but how communities, families, and local institutions react, adapt, and recover over time. This project investigates how rural communities in Michigan's manufacturing and agricultural regions respond to automation, documenting the strategies that have helped some communities thrive while others have struggled. By treating rural residents and workers as active problem-solvers rather than passive victims of technological change, this research will produce practical tools for policymakers, businesses, and community leaders seeking to improve the impacts of automation on rural livelihoods. Findings will be translated into policy briefs for workforce development agencies, decision frameworks for rural businesses, and a toolkit for assessing automation's community impacts.

This project employs a two-phase, mixed-methods approach grounded in community-centered design. In the first phase, a team-based ethnographic study will be conducted across rural regions representing both manufacturing-centered and agriculture-centered economies. Over 24 months, the research team will conduct several analyses, including organizational observations at manufacturing and agricultural sites; semi-structured interviews with current and former workers, business owners, multi-generational families, and community leaders; and document analysis. The research team will use flexible coding and concept mapping methods across these data sources to identify patterns of resilience and community response, and how those vary based on community and industry characteristics. In the second phase, the research team will conduct a series of participatory design workshops with rural community partners using a Research through Design-based approach. Community Reflection Workshops will bring together diverse stakeholders to share their accumulated knowledge about managing technological transitions, while Strategic Design Workshops will engage participants in developing concrete community-centered approaches for navigating future automation. Together, this research will contribute new frameworks for understanding long-term impacts of technological change in resource-constrained settings and new design approaches that center communities as active participants in the introduction of new technologies.